Performance Tools and Compiler Support for Parallel I/O Systems

This award supports a unified program of research and education in parallel input-output systems for high-performance computing. Research activities will include development of tools for I/o performance evaluation, applying the tools to characterize I/O performance of scientific codes, and provision of compiler support for parallel I/O. Educational activities span the needs of graduate and undergraduate students, and include outreach to K-12 and the community. These include development of a graduate course, augmentation of undergraduate curricula, and workshops for participants outside the university.